Algebraic and Probabilistic examples in combinatorial geometry

DMS 0432237

Nets Katz

Indiana University

Algebraic and Geometric Examples in Combinatorial Geometry

ABSTRACT

We will study a collection of problems of similar flavor coming
from different parts of mathematics. The problems are all combinatorial
in nature and involve estimates on the overlap between various geometric
objects. We will attempt to produce examples in these problems by
both algebraic and probabilistic methods.

A great deal of mathematical analysis involves
handling the infinite. Here however we engage in
a deep study of the finite. To be precise, we study the ways
in which finite collections of geometric objects like rectangles,
patterns of points in a grid, and vectors on a high dimensional
sphere can be arranged to achieve certain unusual effects.
We will attempt to discover new and better such arrangements.
One way of doing this is by using a known algebraic structure
to suggest a construction. Another possibility is to choose the example randomly
within certain constraints.